Topics in Harmonic Analysis on Reductive p-adic Groups

Abstract
DeBacker

The investigator will continue his research into a number of topics in
harmonic analysis for Lie groups over nonarchimedian fields. The first
goal is to establish Murnaghan-Kirillov theory for depth zero
supercuspidal representations. At its most basic level,
Murnaghan-Kirillov theory asks for a connection between the
supercuspidal representations of our group and the Fourier transforms
of certain coadjoint orbital integrals. Because of their intimate
connection to finite groups of Lie type, the problem of establishing
Murnaghan-Kirillov theory for these representations reduces to the
problem of associating regular semisimple orbital integrals to
generalized Green functions. The second objective is to investigate
questions about stability. For example, it would be useful to
explicitly understand, in a uniform way via Bruhat-Tits theory, the
space of stable distributions supported on the nilpotent set. Thanks
to various homogeneity results, this problem can be addressed by
associating (as above) regular semisimple orbital integrals to
generalized Green functions.

Harmonic analysis on Lie groups traces its roots to the following
problem from physics: Describe the motion of a plucked guitar string.
Eventually, people realized that this problem --- and rather more pure
problems like calculating Gauss sums or studying the density of primes
in arithmetic progressions --- could be understood by studying certain
well-behaved functions on the circle (or other groups). These
well-behaved functions are called characters, and the resulting theory
is called harmonic analysis. By the 1930s mathematicians had a firm
understanding of harmonic analysis on many types of groups (for
example, compact or abelian groups). During the 1940s problems from
relativistic physics led people to think about harmonic analysis on a
more general class of groups, called Lie groups. Initiated by the work
of Bargmann, Gelfand--Naimark, and Harish-Chandra, the goal was, as
for the guitar problem, to understand functions on the group by
studying characters. Thanks mostly to Harish-Chandra this goal was
largely realized. Based at least partially on his understanding of this
work, in the late 1960s Langlands was led to formulate his program;
this program is a vast, remarkable web of conjectures and ideas --- a
kind of mathematical theory of everything. For example, the celebrated
works of Harris--Taylor, Kim--Shahidi, and Lafforgue provide a small
sampling of the deep results it anticipates. As harmonic analysis on
Lie groups plays a central role in our understanding of many of the
problems in this area, the investigator hopes his research will
contribute to future progress.